Development of Neuron-to-Neuron Synapses in Vitro

This research will focus on development of neuron-to-neuron synapses and will be aimed at testing the validity of neuromuscular junctions as a model for neuron-to-neuron synapses. Specifically, motoneurons will be isolated from embryonic or young post-natal rats, using a flourescence-activated cell sorter, and will be grown in culture with neurons that should and neurons that should not form synapses onto them. The presence of synapses will be ascertained electrophysically and immunocytochemically. The numbers and subcellular distributions of two types of neurotransmitter receptors (those for a peptide, substance P, and an amino acid, glycine) will be monitored, and the effects of the presence of other neurons and of formation of synapses will be determined. Particular attention will be given to whether inducers of different types of receptors acting on the same neuron combine in a linearly additive or synergistic manner. A working hypothesis for this work is that changes in subcellular distributions of receptors will be more prominent in neuron-to- neuron synaptogenesis than will effects on total receptor number.